Mathematical Sciences Research Equipment 1990

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences of the National Sciences Foundation. This program supports the purchase of special purpose computing equipment dedicated to the conduct of research in the mathematical sciences. This equipment is required for several research projects and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers and with substantial cost-sharing from the institutions submitting the proposal. This program is an example of academic, corporate, and government cooperation in the support of the basic research in the mathematical sciences. This equipment will be used to support four research projects in the Department of Mathematics of the University of Chicago: computational studies in the mathematical structure of the Euler and Navier-Stokes equations, directed by Michael Shelly; numerical solution of advective flow problems, directed by Clint Dawson; transport phenomena in chaotic flows, directed by Vered Rom-Kedar; computational studies in the elementary wave patterns and their interactions in 2-D compressible flows; directed by I-Liang Chern.